Field-Scale Nonaqueous Phase Transport Processes in Heterogeneous Aquifers

9616947 Gelhar This is an award to provide support for research on the behavior of dense, nonaqueous phase liquids when present in an aquifer being considered for or being subjected to decontamination. The objectives of the project are to determine the role of aquifer heterogeneity in field-scale flow of immiscible liquids, the distribution of residual nonwetting liquids and the rate of dissolution from the residual phase, and to develop strategies for data collection and analysis during aquifer decontamination. The research will involve a stochastic characterization in which local scale behavior is assumed to be well represented by conventional equations used to describe conservation of mass and momentum. The field-scale response will involve using linear perturbation methods that relate the statistical description of heterogeneity of soil properties to the observable field-scale response. The investigator plans on adapting techniques he has successfully applied to understanding unsaturated flow in porous media while also addressing additional factors that must be considered including flow of a nonwetting phase, trapping by capillary forces and subsequent dissolution. Addressing as it does the effects that dense, nonaqueous liquids have on decontamination of aquifers, one of the expected outcomes of this research will be to improve the engineering design of aquifer decontamination procedures. However, results will also be applicable to a range of environmental protection and resource development problems that require prediction of field-scale transport processes such as radioactive waste management and enhancement of petroleum production. ***